Southeast Asia-Paleomagnetic and Tectonic Studies, U.S- Myanmar Cooperative Research

Description: This project supports cooperative study by a team of Myanmar geologists and geophysicists headed by U. Tin Myint of the Myanmar Oil and Gas Enterprise, and a team of U.S. scientists headed by Dr. Michael Fuller of the University of California, Santa Barbara. The study will be a paleomagnetic effort to help establish the tectonic history of that country. Paleomagnetism is a suitable way for documenting the effects of the Indian-Asia collision and also contributes to the understanding of the accretionary processes, whereby Myanmar became a part of Asia. This work will complement studies being carried out under NSF/EAR grant. Scope: This research will benefit greatly from participation of scientists from Myanmar who have access to data, and to field facilities that would not be easily available, independently, to foreign scientists. The visits of the Myanmar scientists to the laboratory at U.C. Santa Barbara will help break a near total isolation from the west, and enhance the potential for future collaboration with that country. The project meets the objectives of the Science in Developing Countries Program.